Searches for Elementary Particles with Exotic Electromagnetic Charge

This grant covers experimental Elementary Particle Physics research by Professor Kinoshita at Harvard University. She will continue to search for elementary particles with exotic charge. Etchable solid state track detectors are used to search for Dirac monopoles and other highly ionizing particles at two colliding beam accelerators. The continued failure to observe magnetic monopoles remains a puzzle which impacts the fundamental premises of modern physics.